An Undergraduate Computer Graphics Laboratory

This grant supports substantial upgrade to the computer hardware and software supporting a computer graphics course. Specific enhancements realized are CPU speed, resolution, input- device support, color, and up-to-date software. This laboratory supports not only the computer science majors but also majors in Mathematics, Business, Art, and Pre-architecture. This award is being matched by an equal amount from the principal investigator's institution.